Sulfonic Acid Transformation by Anaerobic Bacteria

Leadbetter

This project's aims are to elucidate enzymological and related
aspects of a recently recognized type of bacterial metabolism--the
biodegradation of organosulfur compounds known as sulfonic acids--that
occurs in anoxic habitats. Such habitats are widespread on the planet.
Sulfonic acids are not only biosynthetic products of a variety of animals,
plants and microbes, but are products of chemical commerce (for example,
household and industrial detergents, dyes, and soaps). These compounds
thus enter into both the carbon and sulfur biogeochemical cycles
on the planet.

It has recently been recognized that household and industrial detergents
known as sulfonic acids can be degraded, or cycled, by bacteria that
thrive in habitats in which molecular oxygen is in limited supply. This
metabolism of sulfonic acids results in release of sulfide, a chemical
that has the smell of "rotten-egg" and is, in addition, corrosive to metal
pipes, for example. How these particular bacteria bring about this
biodegradation is the focus of this research project. The results of the
study may be of value in furthering our understanding of metal deterioration
and how to minimize it, as well as to deepen our understanding of
sulfonic acids' roles in contributing to the crucial cycling of carbon
and sulfur compounds on the planet.